Logic and Mathematics Conference

The aim of this proposal is to organize a conference on logic,
with a focus on descriptive set theory, and its applications. The planned
lectures represent the highest quality work being done in the field. By
bringing together major contributors, the conference will help develop new
avenues of cooperation and will help familiarize researchers with recent
work on applications of descriptive set theory. In connection with the
conference, the 60th birthday of Alexander S. Kechris will be celebrated.
Professor Kechris has been among the most important contributors to the
field in the last 35 years.

The project aims to help mathematicians learn to use tools coming from
logic in their work and also to familiarize logicians with problems and
ideas originating in other fields which may resonate with methods
developed within logic. The young researchers whose participation in the
meeting will be supported by this project will benefit by directly
interacting with the best mathematicians in the field. Attendance in the
conference will be a valuable component in their graduate and postgraduate
education.